NSF RAPID: Interactive Science and Technology Instruction for English Learners

This is a RAPID award to investigators at the University of California, Irvine, to examine the first-year implementation of a program that will provide low-cost netbook computers and specialized software to fifth and sixth grade students in four schools in Southern California. The PIs collect baseline and early implementation data to determine effects if the intervention on students' academic achievement in science, academic writing in science, and interest in further STEM study. They also examine the extent to which participation in the program improves student access to, use of, and self-perceived proficiency with technology and how these attributes are mediated by socioeconomic status, ethnicity, and English learner status. Additionally, they examine the effect of the program on teachers' knowledge of and use of technology for instruction.

Four schools from the same school district with similar demographics serve as comparison schools in the study. Additionally, all fifth and sixth grade teachers participate in the study with four program teachers (two at fifth grade and two at sixth grade) participating more extensively as focus teachers. Both qualitative and quantitative methods are used to examine the effects of the program.

The products include analysis of extensive data on implementation, learning and attitudes. A total of 531 students are involved in the study as well as their teachers. The findings are likely to guide subsequent implementation and research on full implementation within the targeted schools.